Acquisition of Gradient Spectroscopy Accessory for the Omega 500

9317993 Dahlquist Partial funding of the hardware needed to perform pulsed field gradient experiments to enhance the use of nuclear magnetic resonance to study the solution properties of proteins and nucleic acids has been requested. The requested capability will greatly aid in 8 projects outlined in this proposal. These include investigations of the substrate binding site of galactose oxidase, the solution structure of the SYMBOL 101 \f "Symbol" subunit of the mitochondrial ATP synthase, the structure of an unusual DNA binding domain found in the project of the skn-1 gene of C. elegans, the structural basis of the interaction of two yeast transcription factors a1 and a2, the structural changes associated with mutations of the prosequence of the yeast carboxypeptidase and the folding pathway of the heterodimeric bacterial luciferase. s t g ? r StringFileInfo ^ 040904E4 ' CompanyName Microsoft Corporation : & FileDescription Windows Task Manager app9317993 Dahlquist Partial funding of the hardware needed to perform pulsed field gradient experiments to enhance the use of 4 5 K L o q $ $ $ D Y Y ? CG Times Symbol & Arial Tms Rmn Times New Roman Y 9 A A " h B e ~ < 1 Shauna Benson Deseree King, BIR